NSF Grid Modernization Engine in the Carolinas

The significance of modernizing the United States electric grid lies in its direct impact on national security, global economic competitiveness, and the nation’s ability to meet rapidly growing energy demands. The current grid is aging, increasingly reliant on foreign-manufactured components, and not equipped to support the surge in demand driven by advanced manufacturing, data centers, and widespread electrification. Data centers alone are projected to account for nearly half of U.S. electricity demand growth, underscoring the urgency of this challenge. The Carolinas Engine for Grid Modernization (Carolinas Grid Engine) addresses these fundamental issues by establishing a two-state innovation ecosystem across 36 counties in North and South Carolina to develop, deploy, and manufacture critical grid technologies, while reducing dependence on foreign suppliers for essential components such as transformers, circuit breakers, and inverters. Beyond energy security, the Carolinas Grid Engine seeks to deliver broad societal benefits. The project targets the creation of over 10,000 jobs, strengthens domestic supply chains for grid technologies, and accelerates the deployment of critical infrastructure. Through partnerships with universities, community colleges, and K–12 school systems across the region, the project advances STEM education and builds a pipeline of skilled energy workers. By convening industry, academia, government, and economic development organizations around shared goals, the Carolinas Grid Engine seeks to reduce energy-related economic disparities and promote sustained regional prosperity. Achieving these goals will help America win the AI race and develop manufacturing dominance.

The goals and scope of the Carolinas Grid Engine center on three interconnected priorities: advancing and de-risking new technologies for transmission, distribution, and generation; creating a thriving, domestic manufacturing ecosystem supported by over 10,000 new jobs; and slashing the time required for new grid technologies to enter the marketplace from 15+ years to 5-7 years. Achieving these goals will help America win the AI race and develop manufacturing dominance. The project pursues these goals through a cross-sector partnership ecosystem anchored at the University of North Carolina at Charlotte. Industry partners are investing hundreds of millions of dollars into the region, and major regional utilities are committing substantial co-investment. Research and development activities span five testbeds operated by leading partners such as Clemson University and Duke Energy. Key technology areas include grid-edge automation, solid state and hybrid transformers, advanced techniques for nuclear construction, and solutions that enhance grid cybersecurity. A translational research model guides the movement of innovations from laboratory to marketplace. Workforce development activities seek to establish new apprenticeship programs, dual-enrollment pathways, and industry-recognized credentials aligned with emerging grid technology occupations. Taken together, these efforts position the Carolinas region as a national leader in grid modernization, with lasting implications for U.S. energy security and economic competitiveness.